Dissertation Research: Evaluating the National Estuary Program: A Case Study of the Albemarle-Pamlico Estuarine Study

Early federal efforts at environmental management were straightforward regulatory programs under which an agency would set standards that industries had to meet. However, over time it has become apparent that such narrow approaches to protecting the environment are insufficient. Stakeholders in environmental management, including scientists, environmental managers, and the public, recognize that environmental management involves diverse and often conflicting values, scientific complexity, and whole ecosystems. People have different concepts of what is important and how to manage the systems. In response to this challenge, new institutions have been developed for improving environmental policy, by integrating these diverse values. One example is the National Estuary Program (NEP), a federally-funded planning effort in which regions convene Management Conferences to study and plan for critical estuaries over a five-year period. One of the first completed National Estuary Programs is the Ablemarle Pamlico Estuarine Study (APES) in North Carolina. This research is an in-depth historical case study of APES to determine how effective it was at incorporating diverse values for the estuarine system. The research uses document analysis of program minutes, correspondence, budgets and reports; interviews with key staff and APES Management Conference participants; and a standardized survey of all participants. Results will include an explanation of the decision-making process within APES, including how values were elicited, debated, and incorporated in the APES planning recommendations. The research will assess how well this innovative institution accomplished NEP goals of improving the use of science, involving the public and integrating management agencies. The findings will have application to other environmental management efforts.